PlantGDB - Plant Genome Database and Analysis Tools

PlantGDB is a database of plant genomic sequences, in particular Expressed Sequence Tags (ESTs) that correspond to fragments of genes that are actively transcribed under particular conditions. The database organizes the ESTs into contigs that represent tentative unique genes. The contigs are annotated and, whenever possible, linked to their genomic DNA origins. The PlantGDB web site includes a number of bioinformatics tools that facilitate gene prediction and cross-species comparisons. The database will provide snapshots of the current knowledge of plant gene composition and facilitate our understanding of plant genetics and evolution.
Deliverables of this project are represented by the web site of
the project: http://www.plantgdb.org/

This web site is the public portal to the database, PlantGDB. All
derived data sets (EST clusters) are downloadable from the site, as
is source code of computer programs used and developed in this
project.